NSF Young Investigator

9458025 Wooley A new approach towards the synthesis of uniquely functionalized macromolecular architectures will be undertaken. Micellization effects will be employed to organize amphiphilic block copolymers, containing crosslinkable sites in one of the blocks, into a desired conformational arrangement, which may be permanently fixed through intramicellar crosslinking of the block copolymer micelles. %%% ***